Subtropical and Tropical American Estuaries: A Session of the International Estuarine Research Conference; October, 1987; New Orleans, Louisiana

This award will support participation by six Latin American and Caribbean scientists in the Ninth Biennial International Estuarine Research Conference, to be held October 25 - 29, 1987 in New Orleans. Among the six keynote theme sessions of the conference is "Subtropical and Tropical Estuaries of Latin America and the Gulf of Mexico"; this session is co-organized by Prof. John W. Day, Jr., of Louisiana State University, Baton Rouge, and Dr. Alejandro Yanez-Arancibia, of the Institute of Marine Sciences and Limnology, National University of Mexico. The six scientists supported by this grant will present papers at this session and participate in other relevant sessions. The other keynote sessions of the conference are: the importance of marshes to estuaries; responses of estuaries to atmospheric processes; mechanisms of recruitment of estuarine organisms; and comparisons of key processes among major estuaries. In these sessions as well, regional comparisons will be highlighted, with particular emphasis on subtropical and tropical estuaries in North and South America. Expanded participation of Latin American scientists in the conference will contribute significantly to this comparative approach, since current research in that region is still not well represented in the international literature. The themes addressed by the conference are of particular importance to the coastal countries of the sponsored scientists, and they will also benefit from new contacts with U.S. researchers. Papers from this meeting will be published in a special issue of the journal Estuaries. Participating scientists from the U.S., Latin America and the Caribbean are expected to benefit not only from the knowledge to be exchanged about coastal ecosystems, management issues, and aquaculture, but also from the stimulation of new professional interactions and the strengthening of existing relationships.